Conference: Workshop on Mechanisms of Furrow Formation During Cell Division, June 8-11, 1989, at Mount Desert Island in Maine.

This is partial support for a Conference on Mechanisms of Furrow Formation During Cell Division, to be held June 8-11, 1989.